Presidential Young Investigator Award

The proposed research involves the derivation of constraints upon the structure, composition, and thermal regime of the Earth's interior by simultaneous consideration of thermodynamic, thermoelastic, mineralogical, and seismological data. In particular: constraint of lower crustal compositions, compositional differences between upper and lower mantle, anomalous compositional and thermal characteristics at the core-mantle boundary.